Research Initiation: VLSI Architecture Implementation Transforms

In the design of a VLSI architecture, there are several choices of performance parameters for each sub-system available to a designer. The choice of design parameters is so complex that very seldom is the whole design space explored. To explore alternative designs, the only recourse a designer has is to redesign the target parts completely. Dr. Tyagi is investigating automation of this process. He is exploring a general set of design transforms that, when applied to a given design with a set of performance parameters (in terms of area, energy, and time), can produce a design with the desired performance. The principal investigator's initial research indicates that such a set of transforms can be identified and implemented. He is applying the transforms to designing functions such as shifting, multiplication and sorting, and finding techniques to compose these functions into an architecture with given performance characteristics.